Elementary Particle Physics Phenomenology at the University of Rochester (CAREER)

Theoretical research in elementary particle physics will focus on the recently discovered top quark and on the `Higgs` particle predicted to exist as part of the mechanism which may explain the origin of mass. Analyses will be done which will make it possible to determine the properties of the top quark (especially its mass) from experimental studies despite the complex relation between these properties and the experimental observations. Analyses facilitating the determination of the properties of the Higgs particle from future experiments will be done as well. Learning the properties of the top quark and of the Higgs particle is centrally important to our learning more about the nature of the elementary particles and their interactions, and about the origin of mass. The project will also have an educational component in which an effort will be made to make physics more accessible to introductory students. An effort will also be made to increase the participation of women in physics by providing teaching internships for undergraduate women, and by the principal investigator serving as a role model for women.